U.S.-Slovak Materials Research on Characterization of Novel Low Dimensional Magnetic Systems

INT 0089140
Meisel, Mark

This U.S.-Slovak research project between Mark Meisel at the University of Florida, Gainesville, and his partner Alexander Feher of P.J. Safarik University, Kosice, features an investigation of the thermodynamic and magnetic properties of a variety of novel low-dimensional inorganic magnets. Know and new materials, including powders and crystals of a variety of compounds constituting model spin chain and ladder systems, will be characterized by combining a blend of macroscopic and microscopic probes that span a range of temperature, magnetic field and pressure. Subject materials include: spin ladders, alternating spin chains, alternating exchange chains, single-ion bound states, and low-dimensional ising dipolar systems. Results are expected to improve our basic understanding of the properties of several low-dimensional magnetic systems and, potentially, the pairing mechanisms in exotic superconductors.

This condensed matter physics project fulfills the program objective of advancing scientific knowledge by enabling experts in the United States and Central Europe to combine complementary talents and share research resources in areas of strong mutual interest and competence.